University of Florida Winter Organelle Meeting, Clearwater, Florida, Feb. 22-25, 1990

This is an application for partial funding of a conference on the molecular biology of organelles, being held under the auspices of the University of Florida from February 22-25, 1990 at the Belleview Biltmore, Clearwater Florida. Participation will be limited to 200 scientist applicants who will be selected on the basis of their expertise and interests as being the most likely to help create a stimulating and informative meeting. The topic of the meeting focuses on DNA containing organelles in animals, plants and fungi and will emphasize research on control of replication and transcription, post-transcriptional regulation, nuclear-mitochondrial interactions, protein targeting, and genetics and evolution. The conference will consist of five, half-day scientific sessions, each with six speakers; in addition two afternoons will be devoted to poster sessions. All session chairpersons have been invited and have accepted, and most other speakers have been confirmed as well. We anticipate this meeting to become a regular organelle molecular biology conference in years when no Gordon or Cold Spring Harbor Conference is offered.